A Tracer Release Experiment in the North Atlantic

This proposal is to investigate the rates of vertical diffusion in the open ocean by releasing an inert tracer and measuring its distribution as a function of time. The experiment will be conducted in the eastern North Atlantic in conjunction with another ocean process experiment. The work is a contribution to the World Ocean Circulation Experiment (WOCE).